Two-Phase Flow Models for Melt Segregation

This research addresses physical processes associated with melting and melt segregation in the mantle, and how these processes affect the geochemical properties of erupted lavas. There is a wealth of geochemical data with which to constrain and test various aspects of mantle dynamics, but in order to effectively use this data one must first understand how melts related to their mantle source both physically and chemically. A two-dimensional finite element numerical code will be used to study a hierarchy of two-phase flow models involving melting and melt segregation.